1996 Gordon Research Conference on Catalysis

ABSTRACT CTS-9628585 Support is provided for the attendance of young investigators - junior faculty and postdoctoral fellows - at the 1996 Gordon Research Conference on Catalysis to be held June 23-28 in New London NH.